SBIR Phase II: Reagentless Optical Sensor for Long-Term Measurement of Dissolved Oxygen in Seawater

9631648 Gottlieb This Small Business Innovation Research Phase II project addresses The need for stable sensors suitable for long term measurement of dissolved oxygen in seawater. Measurement of the dissolved oxygen in seawater is critical to understanding mixing processes and oceanic circulation as well as for the description of water masses. At present there are no stable sensors suitable for long-term monitoring of dissolved oxygen. A need exists for stable long term sensors and the development of a reagentless optical oxygen sensor. Commercial potential includes industrial applications such as monitoring boiler water and bioreactors, automobile emissions testing, and environmental applications such as monitoring waste water.